Isotopic Tests of Survivorship or Reworking of Planktic Foraminifera across the Cretaceous-Tertiary Boundary of Low and Middle Latitudes

9406506 D'Hondt PI and collaborators will test whether early Paleocene last occurrences of late Cretaceous planktic foraminifera primarily resulted from taxonomic survival or from sedimentary reworking across the Cretaceous-Tertiary (K-T) boundary; principal testing technique will be carbon-isotopic analyses of monospecific samples. Broader objectives are to determine how these last occurrences bear on gradual or catastrophic extinction scenarios, and on exogenous or endogenous causes of the K-T mass extinction. Study and results will also bear on a) geographic variation in survivorship, b) relation among survivorship, ecologic strategy, and production, and c) high-resolution biostratigraphy of the K-T boundary. ***